Constrained H-oo Control For Systems With Highly Structured Model Uncertainty

9415286 Sideris Constrained H-inf optimal control (CH-inf) provides a framework for robust control system design with mixed time and frequency domain specifications. In Choo, the frequency domain specifications are formulated in terms of an Hoo-norm minimization problem and the time domain constraints in terms of hard bounds on specified time responses of the closed-loop system such as step responses, etc. The latter are expressed as affine constraints on the solution of the Hoo optimization problem and thus are treated exactly instead of being approximately converted to frequency domain specifications. The complete solution to this problem has been obtained for general discrete time multivariable systems and it consists of solving a finite dimensional convex minimization problem (FDOP) and a standard Hoo optimization problem. The research will extend the current status of CH-inf optimization in many significant ways. More specifically, first a Ch-inf framework in which structured model uncertainty is handled with reduced conservatism will be obtained and thus an even broader set of specifications (time and frequency domain specifications, structured and parametric model uncertainty) can be addressed directly. ***